REG: Proposal for a Nanoindenter

Matching funds will support purchase of a nanoindenter system. The equipment will be used to determine the mechanical properties of thin surface films and layers in support of projects on the tribology of ultra-thin films and ion-implanted surfaces.